US-Hungary Research on Conformation of Glycopeptides

This US-Hungary research project between Dr. Gerald D. Fasman of Brandeis University and Dr. Miklos Hollosi of the Institute of Organic Chemistry, Budapest, Hungary involves synthesis and study of the conformation of glycopeptides. The researchers will synthesize model compounds in both classes; N- and O-glycosidic model B- turn tetrapeptides. Once prepared, the researchers will investigate the conformation of these model compounds by physical-biochemical techniques, including circular dichroisim, nuclear magnetic resonance and infra-red spectroscopy. They will use conformational energy calculations by the MMPMI (1985) to assist in conformational assignments. The roles of glycoproteins have been shown to play important roles in biological processes, however, little research has been carried out on the role of conformation in the various biological fluctuations. Results should improve our understanding of the role that carbohydrates play in glycoprotein function and conformation. This project in biochemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.